Photonic Crystal and Nanostructured Fiber Lasers and Devices

Axel Schulzgen
University of Arizona

Intellectual Merit: The objective of this research is to combine experiments and rigorous theoretical modeling to develop innovative fiber-based devices with nanoscale structures to provide novel performance and complex functionality. By incorporating structures with sub-wavelength feature sizes into the optical fiber itself, highly integrated next generation photonic devices will be demonstrated. Devices that will be modeled, fabricated, and tested include monolithic multicore fiber lasers, photonic crystal fiber with integrated functionalized nanostructures, and optical fiber with chiral nanostructures inside the mode guiding area. Computation of electromagnetic response and modal behavior of these nanostructured waveguides will help to advance predictive capabilities for photonic devices with integrated nanostructures. Sophisticated nanofiber technology will be developed to fabricate well-defined, optically addressable nanostructures at rather low cost with possible applications in fields far beyond optics and photonics.

Broader Impact: The research will be a groundbreaking study that combines nanometer-scale science with optical fiber technology. This approach has a potential to enable unprecedented optical integration by introducing fiber that is a multifunctional photonic device by itself and promises large impact on industry engaged in optics and photonics. The proposed work will provide an excellent opportunity for students to be trained in the vital research fields of nano-science, fiber optics, and laser physics. Special attention will be paid to integrate this research program into established educational outreach activities with the Navajo Nation and educationally disadvantaged students. This program will provide opportunities for students from underrepresented groups to participate in science and engineering education and in world-class research.